CEDAR: Imaging Fabry-Perot Interferometer at Bear Lake Observatory - Mesopause and Thermosphere

This award provides funds for continuing support for developing and operating a first-class, imaging Fabry-Perot interferometer. The major research thrust for this IFPI is to study the dynamics and temperatures of the midlatitude mesopause region. A secondary research thrust is to contribute to several global programs involving thermospheric dynamics that are supported by CEDAR and STEP and to participate in specific local research programs. The observations will be made at Utah State University's Bear Lake Observatory.***//